Philippine Plant Inventory

In collaboration with botanists of the Philippines National Museum, Drs. Sy Sohmer and Benjamin Stone of Hawaii's Bishop Museum are initiating an intensive plant collecting program throughout the Philippines, as phase one of a comprehensive inventory of the estimated 10,000-12,000 species of ferns, conifers, and flowering plants of that tropical island nation. The plant collections of the National Herbarium, virtually destroyed at the end of World War II, will be augmented significantly, and U.S. and European botanists will aid in the identification and study of the thousands of new specimens. Scientists from the University of the Philippines are also participating in this biodiversity inventory. As specimens begin to accumulate from field teams throughout the country, staff at the Philippines National Museum will enter information into computer databases modeled upon similar ones implemented at the Bishop Museum. Initial priority for field collecting is being given to forested regions under consideration for protection or otherwise of interest to conservation agencies. The inventory will also be of use to resource managers and others who must have up-to-date knowledge of species identity, geographical distribution, local uses and names, and ecological condition--common, rare, or extinct--for the plants of the Philippines. A published identification guide to the plants is one of the long-term goals of the collaboration.